Ion Implantation to Reduce Wear on Polyethylene Prosthetic Devices

The purpose of this engineering research is to establish the fundamental engineering basis for ion implantation on the surface of high molecular weight polyethylene to significantly alter it's surface properties. This process has great potential for reducing the surface wear on plastic surfaces and in particular on prosthetic devices. This new process will reduce wear, increase surface life, and reduce friction during use. Useful applications for this process include; joint replacement and cartilage reinforcement or replacement.